Second International Conference on Algebraic Methodology and Software Technology (AMAST) May 22-24, 1991, Iowa City, Iowa

The goal of the second edition of the AMAST conference is to consolidate the trend created by the international dialogue during the first edition of the AMAST making a new step toward transforming algebraic methodology into software technology. The plan is to provide a forum for algebraists, computer scientists, and software developers who are capable of tracing the lines of further development in computer technology based on algebraic methodology and of demonstrating the power of the algebraic methodology by their software products.